Space-Time Correlation Imaging of Objects in Random Media

9908849
Ishimaru

Many natural and man-made media vary randomly in space and time and are
called "random media." Examples are atmospheric turbulence, ocean waves,
rain, fog, snow, vegetation, terrain, biological media, and disordered
media. Optical and acoustical waves and microwaves propagating through
these media experience random fluctuations, and these interactions between
the waves and the random media affect a broad range of practical problems
such as detection, identification and imaging of objects, remote sensing of
media, and communications through such media. In this project, The PI's
emphasize the development of theories to deal with realistic problems which
involve both deterministic objects and random media, rather than ideal
homogeneous random media. Practical applications include imaging in
clutter environment, medical imaging, and sensing of buried objects. The PI's
stress the development of generalized space-time correlation techniques,
polarization correlations, and stochastic Green's functions for the purpose
of detection and imaging of objects in random media. Specific topics to be
investigated include (1) Generalized space-time correlation techniques for
imaging in random media, (2) Ultra-wideband vector radiative transfer, (3)
Sources and objects near rough surfaces and object-medium interactions and
(4) Applications to development of materials and techniques. They plan to
continue to emphasize human resource development and training of graduate
and undergraduate students in all three areas: analytical, numerical and
experimental. This work is directed to the basic research on the
development of theories of imaging and remote sensing of objects in
geophysical and biological media and applications to medical optics,
ultrasound imaging, radars and lidars, remote sensing, and inverse
scattering theories.
***